Mathematical Sciences: The 1988 John H. Barrett Memorial Lectures

This three-day conference highlights the connections between analysis and geometry and will be of interest to those analysts and topologists whose work exploits such connections. Alan Beardon is the main speaker, with D. Hamilton, D. Minda, and B. Osgood invited speakers. There is participant support available, including support for students. This conference is the 1988 version of the John H. Barrett Memorial Lectures, which have been an annual affair since 1972.